Geometric and Algebraic Structures in the Group of Hamiltonian Diffeomorphisms

This research program concentrates on three problems in symplectic
geometry. First, we hope to show that Hofer's bi-invariant Finsler
metric on the group of Hamiltonian diffeomorphisms of a symplectic
manifold is unique. The second project seeks to adapt techniques of
asymptotic geometric analysis to the study of symplectic capacities.
Previous arguments of this kind have made progress toward a symplectic
isoperimetric inequality, indicating the power of the method. Third,
the recently discovered Calabi quasi-morphisms of a symplectic manifold
will be studied and applied to Lagrangian intersection theory and to
a study of the dependence of quantum homology on symplectic structure.

These research projects investigate symplectic geometry, the
geometric structure that serves as background to the Hamiltonian approach
to mechanics and quantum theory. Coordinate systems in this geometry
encode both position and momentum of a moving particle, and additional
structure automates the derivation of laws of motion from a choice of
Hamiltonian function. Symplectic geometry is an old subject that
was renewed in the mid-1980s by exceptionally useful work of M. Gromov
on surfaces in symplectic manifolds, and is today one of the most active
areas of mathematics.